Acquisition of Instruments for Growth and In-Situ Characterization of Mixed Anion Nitride-Arsenide Alloys and for Education

9975701
Goldman

This award will provide partial support for the acquisition of instruments needed for in-situ investigations of alloy formation in mixed anion InGaAsN films and heterostructures towards the development of novel materials with tunable photonic properties. The instruments (Reactive Nitrogen Source, Cryogenic Pump, and MBE-STM Transfer System) will be combined with the existing ultra-high vacuum scanning tunneling microscope and Varian Gen II molecular beam epitaxial growth chamber, in order to facilitate device-quality growth and in-situ characterization of mixed anion nitride-arsenide alloys.

The acquisition of this equipment will provide state-of-the-art instrumentation for approximately 9 graduate and undergraduate students, at the University of Michigan and at Eastern Michigan University, a nearby non-Ph.D. granting University. Furthermore, the system will impact additional 30-40 undergraduate students by enabling growth of technologically important nitride-based materials for use in undergraduate laboratory modules in electronic and photonic materials. The system will also provide opportunities for growth and characterization demonstrations in undergraduate and graduate courses.
%%%
This award is expected to significantly enhance research and educational activities of faculty and students at several institutions.